Travel Support for the Fifth WMO Scientific Conference on Weather Modification and Applied Cloud Physics

This award for travel will provide partial support for about 13 US Scientists to participate in the fifth WMO Conference on Weather Modification and Applied Cloud Physics, which will be held in Beijing, 8-12 May 1989.//